Purchase of 400 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at SUNY Albany will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out research in a number of areas, including a) synthetic organic chemistry; b) studies of redox, ligand substitution and isomerization transformation of metal-metal bonded complexes; c) new synthetic methods and strategies for the total synthesis of naturally occurring polycyclic aromatic compounds; d) study of the organosulfur chemistry of natural products isolated from plants with insecticidal, agricultural or medicinal value; e) studies on the regulatory interdomain interactions of proteins; and f) the synthesis of peptidomimetics.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.